Earth Sciences Postdoctoral Research Fellowship Award

The Fellow will model geodetic data and crustal deformation associated with active magmatic systems. Kilauea Volcano flows and deforms in response to many complex magmatic and structural processes. Data collected since 1965 at the Hawaii Volcano Observatory (HVO) includes inflation and deflation information of summit magma-reservoir, dike injections along rift zones, and earthquakes originating within the volcanic opening. The study expects to use the many repeated measurements of distance, height, and tilt to establish average rates of deformation, and then to solve for the generating structures and processes. The Fellow plans to spend her fellowship tenure at the United States Geological Survey at Flagstaff.